RUI: CAD and Modeling of High Power High Frequency Devices

The PIN diode is a semiconductor device used in a wide variety of applications such as high frequency communications circuits and high power generation equipment. This project is developing and testing a general CAD model for the PIN diode. The model is applicable to PIN diodes made of either elemental semiconductors or compound materials. The project builds upon current and past modeling efforts to develop a model for the PIN diode that can be incorporated into SPICE-like simulators. The project work also includes exploring a methodology for extracting simulator modeling parameters from experimental measurements. Undergraduate students are being involved in the project to develop automated test equipment, measure various semiconductor devices at both dc and high frequency, and creating and maintaining a web site for dissemination of research results.